CISE Research Instrumentation

A workstation and silicon compiler will be provided for researchers at Wright State University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the development of a CAD tool for the design of systolic/wavefront arrays.